Presidential Young Investigators Award

Studies will be undertaken to understand two cell behaviors important to tissue engineering: secretion and migration. Understanding these behaviors is important for efficient tissue development in order to replace defective hormones and administer pharmacologic agents. Research will target mechanisms of stimulus-secretion coupling, with emphasis on the role of cell membrane electrophysiology in these mechanisms. Engineering principals are to be applied in the experiments, and mathematical models will be used to investigate cell migration in three-dimensional biological matrices.